Mineral Education Program for Young Scholars (MEPYS)

Montana College of Mineral Science & Technology will initiate a 4-week residential Young Scholars project for 24 students in grades 9-11 in earth science (mineral education). Montana Tech, in conjunction with regional minerals-based industries has established an activity-based Minerals Education Program. During the summer program participants will be immersed in the field of earth science, introduced to new concepts in geology, hydrogeology, geophysics, mining, metallurgy, and environmental engineering, taught new field and laboratory skills, and participate in active research alongside aspiring and established professionals. New interests and skills will be sustained through the school year by student participation in an Advisor directed research project performed near the student's home area. Students will reconvene for a May Symposium where industry, students, and instructors will share research results.